Digital VLSI Design Laboratory

This grant is for equipment to establish a digital VLSI design laboratory. The research projects that are making use of the equipment include: VLSI architectures for adaptive filters and adders, a high-level design system, and a concurrent hardware/software specification and design system.